Senior Project Equipment Support

The equipment purchased for this undertaking is in support of the required, year long senior electrical engineering design sequence of three courses. The sequence begins at the end of the junior year when the students choose a project, a faculty advisor, and an industrial sponsor. During the first term of the senior year each student completes a formal proposal and a paper design of the proposed apparatus. Projects are completed in the second semester and require construction and test or other suitable means of performance verification. The award is being matched by an equal amount from the principal investigator's institution.